Homological algebra of quantum invariants in dimension four

DMS-0104139
Mikhail G. Khovanov

The project aims to construct quantum invariants of
4-dimensional objects. It is based on the author's recent
discovery of a doubly-graded cohomology theory of links in
the 3-sphere. The Euler characteristic of the cohomology
groups is equal to the Jones polynomial. We would like to
extend this theory to link cobordisms. The invariant of a
cobordism will be a homomorphism between cohomology groups
assigned to the boundaries of the cobordism. Furthermore,
the theory should extend to tangles and tangle cobordisms.
To a tangle we'll associate a functor between triangulated
categories associated to the boundaries of the tangle, and
to a tangle cobordism a natural transformation between functors.
These triangulated categories will be related to highest weight
categories of modules over simple Lie algebras, as well as
categories of modules over certain Frobenius algebras, such
as cyclotomic Hecke algebras. In addition, we will look for
cohomology theories lifts of other quantum invariants of links
and 3-manifolds, including the Alexander and HOMFLY polynomials
and Witten-Reshetikhin-Turaev invariants.

An n-dimensional manifold is an object that locally looks
like an n-dimensional space. A circle can be approximated by
a tangent line in the neighbourhood of a point, and is a
one-dimensional manifold (n-manifold, for short). The global
structure distinguishes the circle from the line, though.
Surfaces provide examples of two-manifolds. It turns out that
one and two-manifolds are easy to classify, while in higher
dimensions classification is hard. It is a theorem that
in dimensions greater than three there can be no satisfactory classification, and topologists seem to be fairly close to
finding one for three-manifolds. Given a pair of manifolds,
it is a tough question to decide whether or not they are
isomorphic. One approach is to extract some tangible invariant
out of a manifold, such as a number, or a polynomial, and then
compare these numbers. Most of the times the numbers are different
and tell us that the manifolds are different, too. Dimension
three is special in that there is a wealth of such invariants.
These invariants, moreover, link three-manifold topology with
deep algebraic structures. There are indications that the
invariants can be lifted to the next dimension, to invariants
of four-manifolds, and my goal is to find them and compare to
analytical invariants of 4-manifolds that arise from solutions of
certain partial differential equations.